Mid-scale RI-1 (M1:DP): Next Generation Event Horizon Telescope Design

The Event Horizon Telescope (EHT) recently made the first direct image of a black hole, an image seen by billions of people around the world. Both the scientific community and the general the public were galvanized by this result. The program funded here is a design project to plan a greatly enhanced EHT (EHT-II), one with 7-8 additional telescopes placed around the world in locations designed to maximize imaging speed, dynamic range, and fidelity. The much faster snapshot mode of this combination will allow rapid tracking of changes near the black hole event horizon, allowing for the first time ever the creation of movies directly showing the dynamics of extreme gravity environments. The greater imaging power will also address long-standing fundamental questions such as how matter is blasted away from a black hole in the form of relativistic jets. Broader impacts include a National Air and Space Museum exhibit, and training of students in instrumentation development.

Instead of relying on existing large facilities to form the Very Long Baseline Interferometry (VLBI) array, as the existing EHT has done, this design program will consider engineering and placement of small-diameter dishes that optimally fill out an Earth sized virtual telescope, tailored precisely for science objectives. By roughly doubling the number of dishes in the array through cost-effective use of small dishes, the EHT-II will be capable of making the first real-time movies of supermassive black holes. The Large Millimeter Telescope in Mexico, in collaboration with the University of Massachusetts Amherst, will serve as a testbed for advanced dual frequency receivers that will be developed as part of this design initiative.

This project is supported by the Foundation-wide Mid-scale Research Infrastructure program. The project will be managed by the Division of Astronomical Sciences within the Directorate for Mathematics and Physical Sciences.